On the Geometry of Kahler-Einstein Manifolds

ABSTRACT DMS - 0204667.
PI: Zhiqin Lu

On the Geometry of Kaehler-Einstein Manifold

In this project, the proposer is going to understand
Kaehler-Einstein metrics, especially Calabi-Yau manifolds
using the theory of moduli spaces, through three different
ways. The first way is to study the potential function of
the Bergman metric of a polarized compact Kaehler
manifold. For the application in the Kaehler-Einstein
geometry, one needs to estimate the potential function from
below for a family of manifolds. The problem is related to
the stability of manifolds in the sense of Geometric
Invariant Theory. The second way is to study the relation
between the K stability and the Mumford stability. Such a
relation, if exists, would give one new insights of the
relations between the Kaehler-Einstein geometry and the
stability of manifolds. The third way is the geometry of
moduli space of polarized Calabi-Yau manifolds. A Kaehler
metric on the moduli space has been defined and was found
that the Ricci curvature of such a metric is negative away
from zero by the proposer. In order to introduce geometric
analysis to the place, one needs to prove a version of the
maximal principle on the moduli space, even if the moduli
space, in general, is not smooth.

Einstein's general theory of relativity is a theory that
interprets the concept of gravity into the geometric
property of the space. Recent development of in physics
shows that the universe may be of dimension ten, with three
dimension in space and one dimension in time plus a tiny
six dimensional space called Calabi-Yau threefold. One of
the main mathematical tool to study the geometry of the
space is differential geometry. Since the discovery of the
general relativity, differential geometry becomes crucial to
both mathematicians and physicists. The project is one of
the main field in differential geometry. It will help a lot
in understanding one of the basic force of the universe: the
gravity and ultimately understanding the space we are living
with. It is difficult to believe that without an extensive
study of fundamental sciences such as general relativity,
modern technology like the use of atomic energy can come
true. By the same reason, today's fundamental study will not
only enlarge our knowledge but eventually benefit people's
life as well.